Upgrade of Entry-Level Undergraduate Physics Laboratory

The Department of Physics and Astronomy at Hunter College is undertaking a major upgrade of its three freshman laboratories. Over one thousand students a year enroll in the Calculus=based and the Algebra-based freshman physics courses and in a one-semester Basic Concepts of Physics course. The fifteen new laboratory experiences include a group of three kinematic experiments, tow acoustic wave and four optics experiments. The remaining five cover areas from gravitation, thermodynamics, electricity, magnetism and radioactivity. The laboratory experiences include repetition of classic experiments as well as opportunity to allow a close-up touch-and-feel of basic phenomena. A majority of the laboratory experiments include computer assisted data collection. Microcomputer based data analysis and graphing are provided throughout the year-long laboratory course. The college is providing more than twice the amount of the grant in support of the project.//